Workshop on Neutron Scattering Education; Chantilly, VA

This Chemistry Division and the Division of Materials Research to Indiana University support a workshop entitled “Building a Network for Neutron Scattering Education” and held on March 27-28, 2008 Chantilly, Virginia. The workshop brings together neutron scattering experts and other academicians with experience in developing non traditional educational programs; the objective is to define and design a roadmap for a comprehensive neutron scattering education program in the US. This will lead to maximizing the national intellectual capital in neutron sciences, and increase the sophistication of research questions addressed by neutron scattering at the Nation’s premier neutron facilities. Participants bring together the scattered and independent elements of an education program and form them into a comprehensive initiative based on modern tools. The broader, long term, impact will be the development of a research community capable of taking full advantage of the unique tools at the Nation’s premier national facilities. The PIs are committed to involve members of underrepresented minorities from Historically Black Colleges and Universities and other Minority Education Institutions.